Massive Information Storage, Management, and Use

This award will aid in the establishment of a massive hierarchical storage facility, (1) to investigate approaches to the design of systems software for such an environment, and (2) to use the environment in a number of application areas, including: i) The construction of large knowledge bases and their application in machine learning and natural language processing; ii) The manipulation of complex objects such as designs, large programs, and multimedia documents; iii) The processing of geometric and pictorial information such as images, surfaces and mathematical functions of several variables; iv) The integrated storage of scientific program libraries, mathematical tables and procedures for the transformation and manipulation of symbolic information. The development of the system will require innovations in distributed operating systems, computer architecture, performance analysis, database system design and algorithm design. The availability of the system will enhance the research at Berkeley in artificial intelligence, text processing, programming systems, graphics, computer vision and scientific computation.